Project UPDATE (Upgrading Practice through Design and Technology/Engineering Education)

Project UPDATE (Upgrading Practice through Design and Technology/Engineering Education) will develop K-8 curriculum materials for teaching integrative mathematics, science and technology using a design, technology and problem-solving approach. The project will have widespread impact on teachers, students and practitioners by providing twelve curriculum packages as models for (a) innovative instruction and (b) further curriculum development efforts of collaborative teams of teachers and practitioners from science, mathematics, engineering, design and technology. The inservice training of other teachers will be initiated regionally through participating teacher-training institutions as an initial step for national dissemination and training. National dissemination of the models and materials will be accomplished mainly through TIES Magazine, a free periodical for teachers published by Drexel University. The curriculum materials from Project UPDATE will support a national commitment to improve education in mathematics, science and technology by engaging students in using, discussing, assessing and reconstructing what they have learned as they continue to put their knowledge to work.